SBIR Phase I: Patterened substrates For Biochips

This Small Business Innovation Research Phase 1 Project is to develop microarrays for analyzing thousands of sequences of DNA for genomic and diagnostic applications. The microarrays would be made from sol-gel coatings with specific microstructures. These substrates will allow higher density arrays and higher signal/noise ratio from each of the array elements. This will result in increasing analytical throughput with an improved accuracy in detection and reproducibility of the data.
The commercial applications of this project will be in the areas of healthcare and agriculture.